Development of Constitutive Equations and Processing Maps Using Dynamic Modeling Approach

In this project constitutive equations and processing maps using a dynamic modeling approach will be developed for metal forming processes. Inconel Alloy 718 will be used as the work material. This alloy is selected because of its extensive application in areas requiring high strength, corrosion resistance and weldability in aged condition. A computer program will be used to calculate an array of values, giving the desired ram position as a function of time for particular combinations of strain rate and specimen height. Effective stress and effective strain-rate values will be extracted at various strain levels and test temperatures from flow curves; constitutive equations will be derived therefrom. Processing maps will be developed to describe the intrinsic workability of each material and to evaluate the dissipative/metallurgical processes occurring during hot deformation in the stable and unstable regions, and to identify in the stable region the optimum temperature and strain-rate range for processing the materials. This research is important in the area of metal forming and has immediate potential applications.